RAPID: A rapid and ultrasensitive technology for sensing intact SARS-CoV-2 using designer DNA nanostructure capture probes and photonic resonator interference scattering microscopy

The rapid development of the COVID-19 pandemic highlights the shortcomings in existing technologies for viral detection and identification. The lack of widespread availability of testing, combined with a high rate of false negative tests, contribute to quarantine failure and confusion among health authorities and the public. The investigator proposes to combine biosensing and biophotonics approaches to develop and demonstrate a rapid, room temperature, single-step, virus-specific, and ultrasensitive digital resolution assay for COVID-19 that can be performed immediately after sample collection at the point of care, and provide a result in less than 15 minutes.

The investigator and his group recently demonstrated that a photonic crystal surface can amplify the scattering of light from surface-attached nanoparticles, including virions, and that a new form of biosensor microscopy called Photonic Resonator Interference Scattering Microscopy (PRISM) can detect and digitally count the virus particles in real time, without the use of additional labels or stains. These technologies will be rapidly adapted and tested for COVID-19 detection.